Laboratory Simulation of the Solar Wind Interaction with Planetary Atmospheres

Birkeland in 1908 was the first to introduce the famous terrella experiment which simulated some of the features of the magnetosphere in a controlled laboratory environment. Utilizing electron beams, this first terrella experiment supported his auroral investigations. This grant is for terrella experiments of the following studies: 1) global structures of the earth's magnetotail, 2) large scale field-aligned polar currents, and 3) temporal variations of fields with an emphasis on fluctuations. An intense spherical dipole field will be used as a model earth. A high density cold plasma injected from inside the sphere will surround the model earth, simulating the ionosphere. This model earth will then be exposed to a moderate density magnetized plasma beam produced by a large plasma gun, simulating the solar wind. To achieve the proposed objectives, various computer-aided diagnostics for particles, fields, currents, and waves will be used to obtain and analyze the comprehensive data.